University of Maryland Computer Science, Engineering and Mathematics Scholarship Program

This program provides both financial and academic support to low-income students with special consideration given to new transfer, female, and under- represented minority students. Primary objectives of this program are to 1) increase the number of low-income students obtaining undergraduate degrees in computer science, engineering and mathematics; 2) increase the number of women and under-represented minorities obtaining undergraduate degrees in computer science, engineering and mathematics; and, 3) to increase retention and graduation in these fields. In addition to financial assistance, CSEM recipients participate in a variety of activities designed to support their success including faculty mentoring, academic advising, faculty research or internship experiences, and enrollment in a special seminar focused on career and graduate schools information.